Support for Aquatic Sciences Film Festival Workshop

In attempts to communicate to the general public, short videos are an outstanding tool that can be used in direct presentations and also on-line on web pages, blogs, You tube and other social networking formats. This workshop award provides funding for the University of Delaware to organize a “Film Festival” workshop to be held at the American Society for Limnology and Oceanography (ASLO) conference in February, 2011. The proposed workshop will support the efforts of scientists who are willing to present their research in the short video format. The workshop builds upon two separate workshops that were held in prior years at ASLO conferences.